RUI: Space of Multiparticle Entanglement Types

Classification of entanglement types and describing the set of states which
share a given entanglement type for quantum systems whose subsystems are
quantum bits (qubits) is an important open problem in the field of quantum
information theory. Its importance derives from applications including quantum
computation algorithms and quantum communications protocols which
rely on entanglement as an essential resource.
Most known results utilize polynomial invariants (polynomial functions of
state vector coefficients) to analyze entanglement. The complexity of this
approach grows exponentially with the number of qubits and thus far has
proved impractical to apply to systems with more than a small number of
qubits.
An alternative approach using geometric invariants based on the Lie algebra of the
group of local unitary transformations will be explored. In contrast to polynomial
invariants, this is applicable to systems with an arbitrary number of qubits.
The PIs have achieved general results that distinguish products of singlet
states as having a unique extremal property among entanglement types.
The PIs propose to further develop this machinery to refine existing invariants,
to construct new invariants, and to prove a number of conjectures including
entanglement classification statements about product states and n-cat states.